SBIR Phase I: Nanoporous Catalytic Mixed Oxide Membranes for Removal of Hazardous Air Pollutants

This Small Business Innovation Research (SBIR) Phase I research project seeks to develop a new type of nanoporous, highly catalytically active mixed-oxide ceramic membranes by sol-gel processing. The composite of the two components would significantly enhance the catalytic activity and thermal stability of the membrane structure. The versatility of sol-gel processing will facilitate the engineering of nanoporous membranes with extremely high surface area and desired microstructure that is tailored for different specific applications. These membranes can be used for removing both Volatile Organic Compounds (VOCs) by catalytic oxidation and small particulate matter by physical capture and/or catalytic chemical reactions.

Such membranes may be very suitable for being used as catalytic filters for removal of Hazardous Air Pollutants (HAPs). In addition, they may be used for oxidative coupling of methane, partial oxidation of methane to syngas, and decomposition of nitrogen oxides.